A CAD Tool for Architectural Exploration in the Classroom

Proposal Number: 9361662 PI Last Name: Lagnese Computer architecture courses may use a lab-based approach to emphasize the design process. However, such an approach is severely limited by the time available for the course. DASYS proposes to provide a tool that will abstract away tedious details of the design process and allow the students to spend more time on the more creative aspects of design. DASYS' architectural partitioning/high level synthesis tool allows the user to begin the design process with an abstract behavioral description of the architecture to be designed, and produces an RTL description of the design which can be passed on to lower level tools for realization. During its design process, DASYS' tools allow for designer control through constraint specification and direct interaction. DASYS proposes to determine how this tool could best be used in an electrical/computer engineering curriculum by exploring how the tool can aid in one or more courses that are currently part of the computer engineering curriculum at Carnegie Mellon University. Such a tool currently is not available, either commercially or pedagogically. ***y